NSF Student and Early-Career Faculty Travel and Registration Grant for 2017 IEEE International Conference on Software Engineering (ICSE)

The grant will fund students and early-career faculty to attend the International Conference on Software Engineering (ICSE 2017), which will take place in Buenos Aires, Argentina in May, 2017. The conference is the flagship conference in the field of Software Engineering. The grant will enable attendees to exchange ideas, form research collaborations, and contribute to advances in the field of Software Engineering. Participation is important to the building of a competent and advanced workforce of software engineering researchers and practitioners. The conference is an opportunity for education, training and mentoring and international community-building in the field.